The Interaction Between State Courts and the Local Legal System

Courts and informal procedures change as state power expands and economic changes occur. Understanding of these transformations requires examination of the historical evolution of conflict management procedures in relation to political and economic change. In this project, Dr. Westermark revisits the Highlands of New Guinea where ten years ago he had the opportunity to study the then incipient centrally imposed court system. His inquiry focuses on how the relationship between that centrally imposed court structure and the indigenous legal culture has developed. Specifically, he investigates how local forms of dispute processing are connected to the national legal system, from the decisions of individual disputants to the policy decisions of legal planners. The data from this study are drawn primarily from case records of local and district courts, from in-court observations, and from systematic interviews with the parties in the dispute. To insure that the range of disputes likely to occur are considered in this research, periodic interviews with a community sample will also be conducted, addressing such issues as individuals' knowledge of, experience with, and problem solving strategies in handling recent disputes. Using an interactionist model which pays heed to the adaptations of the state system to indigenous legal cultures and practices, the project has the potential to make an important contribution to understanding how state structures affect both disputing and the effectiveness of dispute resolution procedures. It should illuminate the interaction of local legal culture and state-ordered reforms in different categories of cases and with different populations. As importantly, by looking at changes and development over time, this study examines the state and the function of village courts from a more dynamic framework.